Dissertation Research: The Evolutionary Genetics of the Chimpanzees

ABSTRACT P.I. Jon Marks, Ken Kidd, Amos Dienard SBR-9315871 Recent advances in the field of molecular genetics are being used to investigate the evolutionary relationships between humans and apes and other primates. However, most such phylogenetic analyses have used single individuals of ape species to represent the entire species, and the resulting phyolgenies, given the genetic closeness of the different species, could be seriously distorted by specific variation within any of the species involved. Genetic variation within species is more extensive than formerly imagined, and is the focus of much developing work in this area. This dissertation research will directly address the question of both population variation and phylogeny by a direct analysis of variation at five selected genes in the nuclear genome. It will yield us a very good idea of the extent of genetic variation within and among chimpanzee species, and offer a comparison with the variation in humans (there are some indicaitons that more variety exists among a single chimp species of small numbers and occupying a small area than among all humans - if true, a remarkable finding on the homogeneity of humans). Also, the work will provide a useful base from which to plan future breeding of captive colonies. *** P\anthro\jfried\9315871.abs < > ! ! D H H ( Times New Roman Symbol & Arial 2 2 7 7 2 " h 7 ER EI E 7 = Jonathan Friedlaender Jonathan Friedlaender